Laboratory Development for Rapid Prototyping for Concurrent Engineering

This project performs pilot studies to facilitate laboratory- based learning of concurrent engineering concepts. The learn- by-doing laboratory approach to teach concurrent engineering is made possible by rapid prototyping technologies, in which a product design on a CAD system is transformed to its physical counterpart using either stereo lithography appratus, selective laser sintering or 3-D printing. This project develops a comprehensive architecture for laboratory development, including equipment specifications, experiments, and curricular recommendations which serve as a national model for adoption at other universities. The project develops laboratory experiments and case studies to teach concurrent engineering concepts with respect to manufacturability, serviceability/maintainability, testability, quality and reliability during the product design process.